HNDS-I: Linked Administrative Data in Social Services

The Linkage Initiative for Policy Evaluation and Research (LIPER) will create unique databases
to support innovative social science research. The new databases will support new
understandings of how households use debt and assets to weather volatility and make longterm
decisions; better diagnosis of the strengths and weaknesses of the social safety net and its
efficacy in supporting self-sufficiency; and new insights into the impacts of the full suite of
government programs and services on a variety of outcomes, from health to housing stability to
justice involvement. The databases will use administrative microdata, which is person-level data
that is collected by state and local agencies in the process of providing services. Government is
already collecting these data, and the project will unlock their value for understanding population
needs and the efficacy of policies in meeting these needs. The LIPER databases will be
particularly valuable for inclusive research involving a wide range of underrepresented groups
and for understanding the complex dynamics of racial and economic equity. Access to the
LIPER databases will allow investigators across a wide range of social science fields to
generate accurate and actionable insights leading to more informed public policy and,
ultimately, to improved individual well-being.

The LIPER databases will each link data from multiple agencies. Linked data of this type is
increasingly important for breakthrough research. Yet in the United States, legal and technical
barriers often prevent it from being used by researchers. LIPER will develop data resources,
including linkages across previously separate data systems; build mechanisms and
infrastructure to support wide access of researchers to the data for a range of projects, while
preserving privacy and security; and provide opportunities for the next generation of social
science researchers to build their research programs with LIPER data resources. It will build on
existing relationships that the LIPER project researchers have with California agencies and will
be housed within the California Policy Lab at UC Berkeley and UCLA, which is dedicated to
using data driven insights to address urgent social problems. LIPER will be built within a secure
computer infrastructure that allows remote access for approved researchers. The LIPER
website will allow researchers to explore public metadata and the team will review applications
for researchers to access the data in a streamlined fashion. The team will also innovate on
methods for linking data without access to personally identifiable information.